Symposium: The Genetic Analysis of Development, October 29, 1987-November 1, 1987, Bloomington, Indiana

This proposal requests funds in partial support of a symposium entitled: "The Genetic Analysis of Development." The symposium is the third in an annual series organized by the Institute for Molecular and Cellular Biology at Indiana University . It will occur on the dates October 29 - November 1, 1987 at Bloomington, Indiana. The purpose is to provide an up-to-date account of the current status of this fast moving research area. The use of recombinant technology has made it possible to directly address the question of genetic control of the development of an organism from embryo to adult. The insights gained within the last ten years have far exceeded those in all preceeding years. This conference will bring together those scientists working different systems such as Drosophila melangoster, Caenorhabditis elegans, plants and humans. The setting is appropriate for maximum interaction among the established scientists as well as the younger students of biology.